Gravitation physics and relativistic astrophysics

Theoretical research will be carried out on the properties
of objects with strong gravitational fields, such as neutron
stars, black holes, and the Universe as a whole, with a particular
focus on understanding the gravitational waves that such objects
produce, and on developing and extending analytic approximation methods
in general relativity to study these objects. The particular
objects to be studied include (i) newly born neutron stars in
supernovae explosions, (ii) neutron stars and/or black holes
spiralling into supermassive black holes in distant galaxies, and
(iii) the dynamics of the very early Universe in models motivated by
string theory with extra spatial dimensions and membranes.
These studies will be useful in teaching us about the physics of
relativistic gravitational fields, particularly when combined with
future observational data from gravitational wave detectors and other
sources.